Negotiation Networks

This research involves the development of automated negotiation protocols
for autonomous agents in negotiation networks, where each agent can only
negotiate with few selected neighbors. That is, we develop agents that can
carry out any number of simultaneous negotiations with other selfish agents.
For example, they could be routers in the Internet negotiating over which
packets to route and which to drop, or purchasing agents in a supply chain
deciding what to buy and at what price, or web services deciding who to
provide services for and at what price, or sensors in a sensor network
deciding which measurements to make and who to forward the results. Our
research involves building the negotiation strategies for selfish rational
agents that individuals and companies will want to use, along with the
negotiation protocols that ensure the agents'
interactions result in efficient global resource allocations.

The problem of negotiation networks combines features of characteristic
form games and bargaining games from game theory, combinatorial auctions
and distributed mechanism design from Economics, network exchange theory
from Sociology, and distributed algorithm design from computer science.
Our research brings together results from these disparate fields into
one framework and provides algorithmic solutions for the dynamic,
distributed problem of resource allocation among self-interested parties,
in contrast with game theory and Economics' solutions which are typically
steady-state axiomatic solutions. Success in this research is potentially
transformative as it will provide the foundation for the engineering of
protocols and efficient algorithms for distributed resource allocation,
which is a pervasive problem in our ever-growing highly-interconnected
society.